CAREER: Engineered Tendon Microenvironments to Study Extracellular Vesicle Mediated-Cell Communication in Matrix Remodeling

Tendon injuries and diseases lead to chronic pain, reduced mobility, and diminished quality of life. Healthy tendons are composed of an organized extracellular matrix (ECM), the structural network surrounding cells that provides tissue strength and enables efficient force transmission between muscle and bone. Following injury or disease, this matrix becomes disorganized and heals through formation of a stiff fibrotic scar tissue, resulting in mechanically weakened tendons with impaired function. However, how tendon cells sense, respond, and actively contribute to these structural changes in the ECM is still not fully understood. The goal of this Faculty Early Career Development (CAREER) project is to better understand how the tendon microenvironment influences cellular communication during health and disease. Small particles released by cells called extracellular vesicles (EVs) may contribute to tissue scarring and disease progression. The project will develop biomaterial platforms that mimic healthy and diseased tendon ECM to study how changes in tendon structure, stiffness, and mechanical loading influence EV release and function. The studies will reveal aspects of EV-mediated cellular communication and how EVs alter neighboring cell behavior and contribute to tendon healing. Outreach efforts include a K-12 summer engineering camp focused on musculoskeletal (MSK) research in partnership with local community-based organizations, and a project centered on effective scientific communication on MSK diseases. The project further contributes to NSF priorities in advancing national health with workshops for older individuals that emphasize the importance of exercise and movement for MSK health and wellness.

Fibrotic tendon repair compromises tendon function, limits mobility, and increases susceptibility to re-injury. Achieving functional tendon healing requires a deeper understanding of the cellular mechanisms driving fibrotic remodeling, particularly intercellular communication among tendon-resident cells. Extracellular vesicles (EVs) are emerging as key mediators of cell communication during tissue homeostasis, repair, and remodeling. EVs are small lipid-bound particles that transport bioactive cargo, including proteins and nucleic acids, between cells. EV-mediated signaling regulates tissue homeostasis, coordinates repair processes, and drives extracellular matrix (ECM) remodeling across multiple tissues. It is unknown how microenvironmental cues including matrix organization, mechanical loading, and inflammation regulate EV secretion, cargo composition, and downstream cellular responses. The project will test the hypothesis that EV release and cargo are regulated by matrix composition, mechanics, and inflammatory signaling, and that altered EV dynamics propagate fibrosis through a feed-forward signaling loop between tendon-resident cells. This will be accomplished by (1) designing a 3D biomaterial system that mimics the healthy and fibrotic tendon ECM to study matrix-driven regulation of tendon cell phenotype, (2) characterizing EV secretion and cargo profiles under static and dynamic-loading conditions, and (3) evaluating the influence of EV-mediated intercellular signaling on tendon cell behavior and phenotype using co-culture systems with EVs derived from healthy and fibrotic microenvironments. Collectively, this work will leverage engineered biomaterials to address critical gaps in understanding EV-mediated cellular mechanisms that drive fibrotic tendon remodeling.